Research Experience For Undergraduate Students in Sensor Technologies

9322055 Van der Spiegel This Research Experiences for Undergraduates project at the University of Pennsylvania Center for Sensor Technologies within the School of Engineering and Applied Science has served as the will involve students in the development of new sensor technologies. ***